Interpretation of SHEBA Data Using Numerical Models

This research will study the ocean mixed-layer circulation within sea-ice leads. These openings in the pack ice allow a greater proportion of the summer-time solar radiation to be absorbed which results in enhanced ice melt. In winter, leads allow significant cooling of the ocean waters which promotes enhanced ice formation. The finely-resolved SHEBA hydrographic data set, taken during intensive studies on leads, as well as remote sensing data will be used to guide the work. Modeling will be based on an existing 3-dimensional convection model to which will be added a sophisticated ice-ocean submodel. High resolution studies would examine the interactions between open water fraction, mixed layer temperature, and ice thickness. Numerical studies would examine both winter and summer conditions. This work will contribute to the understanding of the near-surface heat budget and will aid in parameterization of lead processes in global circulation models.